Moving Mesh Methods for Numerical Solution of Time Dependent Partial Differential Equations in Two and Three Spatial Dimensions

The investigator continues to develop adaptive moving mesh methods
for the numerical solution of time dependent, multi-dimensional
partial differential equations. The research work will be focused
on a new moving mesh method, the moving mesh partial differential
equation approach proposed by the investigator and his collaborators.
The approach has been implemented in one and two dimensions for
generating non-singular structured and unstructured adaptive meshes
and successfully applied to a number of problems. Moreover,
the approach has led to a unifying framework describing previous
methods, providing a new theoretical underpinning, and building
reliable new methods. The objectives of the proposal are to
further improve the efficiency and robustness of the two dimensional
method, to apply it to practical problems, and to implement
the three dimensional method.

This project is concerned with the development of new computational
methods which are essential to enhance the ability of scientists and
engineers to solve large scale computational problems that are crucial
to our economy, environment, and security. The research is focused on
development of adaptive numerical techniques or mesh adaptation methods,
where the special moving features of the particular problem being solved
are adapted to. Mesh adaptation has recently played an indispensable role
in the numerical simulation of many large-scale problems arising from
science, engineering, and industry, such as those involving shock
waves, boundary layers, ignition propagation fronts, and multi-material
interface. These problems have a distinct common feature, that is, their
solution changes significantly only in a small portion of the physical
domain and the resolution of the solution in this portion dominates
the quality of the whole simulation. Standard (non-adaptive) techniques
often fail to solve these problems because they spend effort evenly on
the entire domain and thus require formidable resources of computer
CPU time and memory to obtain a reasonable degree of resolution.
On the other hand, adaptive mesh methods gain significant economies
by paying most attention to the small portion of the physical domain
where the solution changes most. The moving mesh method under study
is a natural type of adaptive mesh methods which are designed to
capture the moving features of the physical solution. The method
is suitable for parallel computing and has proven to be an indispensable
tool for use in the simulation of many industrial manufacturing problems.
As an important part of the proposed research project, two specific
applications will be focused on. The first will be the numerical
simulation of chemical transport in groundwater aquifers.
Groundwater supplies much of the water use in the United
States. The wide spread degradation of groundwater quality from
chemical contamination has recently prompted extensive research for
simulating and predicting chemical behaviors in the subsurface.
The application of the moving mesh methods will provide accurate,
efficient, and robust numerical algorithms for simulating chemical
transport in groundwater and therefore for effectively protecting
and managing the groundwater resources. The other application will be
on the analysis of dynamic stall of airfoil for better understanding
the physical mechanisms which cause the unsteady flow
behavior in the high-angle-of-attack flight condition found common
with modern fighter and civil transport aircrafts.